Biocontrol of Soilborne Plant Pathogens in Bare Root ConiferNurseries

Pesticide use on plant crops pose long-term effects to human health and the environment. The U.S. Forest Service, Pacific Northwest Region, in a Draft Environmental Impact Statement (1989) has adopted a pest management policy which gives preference to non-chemical control measures. Reliable non- chemical control is not available for fungal root diseases of conifer seedlings, therefore chemicals remain in use. Environmentally safe strains of microorganisms can effectively protect plants from root diseases. Furthermore, new methods have been developed for coating seeds with these beneficial organisms. As yet, these new technologies have not been applied to forest nurseries. This research project will elevate biological control organisms and current seed coating technology for biological disease control in barefoot forest nurseries. The control of damping-off and root rot diseases of Douglas-fir by Pythium, Fusarium, Phytophthora and Cylindrocarpon will be elevated. The data obtained will assist in the production of a seed coating product which would be available to federal, state and private forest nurseries. The product will be adaptable to food crops as well as horticultural and ornamental industries.